Waves and Vibrations: An Exhibit

The Children's Museum proposes to develop two versions of an interative physical.science exhibit dealing with wave mechanics and the related actions of vibrating and oscillation systems. One version will be a permanent exhibit that is to be a central component in the new science area of the museum, while the other will be a traveling exhibit that will tour the country under the auspices of the Association of Science.Technology Centers. The purpose of the exhibit is to heighten the interest of children in scientific experimentation, with learning taking place at three levels including sensory.motor, perceptual.operational and intutitive.conceptual. Materials for teachers will supplement the exhibit, and an internship program will train largely minority middle.school students in basic concepts and then use them as "explainers" for the general public. The request to the National Science Foundation represents 73% of the total cost of the exhibits, with the remainder coming from institutional and other sources.